Assessing the State of Web-Based Laboratory Teaching and Learning: Phase II

Our project will help the National Science Foundation as well as the larger STEM community understand how laboratory-teaching experiences are delivered using web-based information technologies. The project will ascertain how advanced web-mediated learning technologies are used to "convey" laboratory experiences in the undergraduate science and engineering curriculum. Our team will work to build on an existing database and begin to evaluate what student learning outcomes are being addressed. In addition, our final report will contain a formal literature , project goals, and a methodology. Our findings will be defended in a formal oral presentation to NSF personnel, WPI faculty and other invitees. Finally the results from our project will be presented at the annual Frontiers in Education Conference.